Presidential Young Investigator Award

Dr. Lybrand will be developing and applying computer modeling techniques to the study of ligand-biomolecule interactions. The project is multidisciplinary in nature, drawing on computational techniques from theoretical chemistry and interactive computer graphics modeling methodology from computer science, coupled with basic science components of biochemistry and pharmacology. Collaborative efforts will be made with specialists in complementary fields such as computer science and theoretical chemistry. This will greatly enhance the research in computer simulation by drawing from state-of-the-art methodologies and resources in various disciplines.